Biomedical Electronic Engineering Technology Project

This project addresses the critical regional need of the medical community and medical industry for well-trained biomedical electronic technicians by developing an enhancement to the existing Biomedical Electronic Engineer Technology program. The development effort specifies an interdisciplinary curriculum to assure that students acquire strong mathematics, science, computer, telecommunications, and other critical thinking skills as part of their degree program. The project encompasses planning for curriculum development, faculty enhancement, and laboratory improvement and establishes a stronger partnership with the medical community and industry to increase internship and co-op opportunities. In addition, the project addresses articulation arrangements with secondary schools, and two- and four-year colleges.